IUCRC: Corrosion in Multiphase Systems

ABSTRACT
EEC-9817958
JEPSON

Corrosion in production systems is a major problem for all oil and gas producing companies. This is especially true for future production in the deep waters of the Gulf of Mexico. Intervention and remediation is extremely expensive in these environments and the state-of-the-art for predicting corrosion in multiphase systems is almost non-existent. In its first five years the Industry/University Cooperative Research Center for Corrosion in Multiphase Systems at Ohio University has the center has made substantial progress towards understanding the effect of multiphase flow on corrosion. The knowledge has been developed based on a database of more than 50,000 points generated on oil/water/gas holdup and velocity profiles at various inclinations, input ratios and flow rates at different pressures and temperatures in pipes of different diameters. Particularly, the Center has been instrumental in enlightening the corrosion community about the effect of the impact and collapse of entrained gas bubbles on the pipe wall. While uniform or general corrosion is now reasonably understood, localized corrosion still needs to be investigated further. The research foci of this renewal proposal include the following new project areas:1) Corrosion Inhibition Studies; 2) Corrosion in Sour Systems; 3) Corrosion in Wet Gas Systems; 4) Hilly Terrain; and 5) Slug and Corrosion Tracking.